Interaction Effects of Solar Ultraviolet Radiation and the Nutrient Environment on the Dynamics of Growth of Freshwater Bacteria and Phytoplankton

Exposure to solar ultraviolet radiation (UVR) is a fact of life for organisms living in
the photic zone of aquatic environments. It is increasingly evident that zooplankton,
phytoplankton, protozoa, and bacterioplankton exhibit taxon-specific differences in
physiological and behavioral responses to UVR exposure. Although competition for
nutrients is recognized as a critical factor in structuring plankton community
composition, nothing is known of the significance of UVR under natural conditions for the
intensity of competition among plankton for limiting mineral nutrients. The proposed
research will help to fill this gap in knowledge. We will examine the main and
interaction effects of the nutrient and UVR regime on the growth rates and competition for
phosphorus of naturally occurring phytoplankton and bacterioplankton. A model is
presented and predictions made regarding the severity of nutrient competition under a
range in conditions of nutrient (organic carbon and phosphorus) ratios and UVR exposure.
We predict that, because of differential effects on bacterioplankton and phytoplankton
growth rates, UVR will modify the severity of competition between phytoplankton and
bacterioplankton for phosphorus. Using samples collected from a low-altitude reservoir in
north Mississippi, experiments will be conducted to test the model predictions. This
study fulfills two needs. It will be the first to evaluate by experimentation using
natural sunlight the interaction effects of UVR and the nutrient regime on growth rates of
autotrophic and heterotrophic plankton under various degrees of nutrient limitation.
Second, it will provide knowledge of the influence of the UVR regime on the relative
importance of autotrophic and bacterial heterotrophic production in a southern U.S.
aquatic ecosystem, where, compared to higher latitudes, there has been very little
research on the ecological significance of UVR. Students will be involved in all aspects
of the project, from planning to sampling to data analysis to presentation. With
anticipated continued increases of UVR in temperate regions due to ozone depletion, the
effect of UVR on plankton trophic-level relationships constitutes a timely and important
problem.